1993 MEMS Workshop Travel Assistance, Ft. Lauderdale, FL, February 7-10, 1993

This grant provides support to assist graduate students and young faculty who are engaged in Microelectromechanical Systems (MEMS) research to attend the 1993 IEEE Micro Electro Mechanical Systems Workshop, which will be held in Ft. Lauderdale, Florida, February 7-10, 1993. Award of travel assistance will be competitive, and will be on the basis of need, with highest priority going to graduate students presenting papers.